Enhanced Polymer Blend Compatibility Through Controlled Interfacial Mixing

The mechanical properties of polymer blends will be studied under a Research Initiation Award. The purpose is to improve these properties, and especially the large-strain behavior, by broadening the interface zones by judicious use of functional groups in the blends. Polystyrene and poly(ethylene-co-propylene), which have been functionalized with hydrogen bond and proton donor and acceptor sites, will be used as the constituents of model blends. The degree of interfacial mixing will be determined by small angle x-ray scattering and thermal analysis and related to mechanical behavior.